Information and the Firm

Very little attention has been paid in industrial organization to the timing of firms' quantity decisions, in particular when firms have private information. When a firm is privately informed, e.g, about the state of demand, any action taken by that firm can convey information. This includes the decision on when to make (or announce) a quantity (capacity) choice. While making a decision early enables a firm to commit to an advantageous quantity level, other firms gain information about the state of demand. Furthermore, the possibility of misleading the other firms by choosing a small quantity (which leads the other firms to conclude that the state of demand is worse than it actually is) results in equilibrium in small quantity choices. This effect can be so marked that, ex ante, no firm wants to choose before the other firms have chosen. The investigator has already proven in a simple model that the most informed firm will choose before other firms. This project will extend the analysis to more complicated dynamic and informational environments. The project also studies general equilibrium models of firm formation. Earlier work has viewed ownership of a firm as either equivalent to ownership of an asset or production process or the ability to exercise residual rights. While these aspects are certainly important, this project shows that production externalities and the transmission of resources over time are also important aspects of entrepreneurial activity. Private information also plays an important role. This is exciting research because it promises new insights into the timing of firm's investment decisions and into the creation of new jobs by the formation of firms. Methodologically, this project also improves the widely used leader-follower(s) game- theoretic model.